Synthesis and Hydrocarbon C-H Bond Reactivity of Dinuclear Early Transition Metal Complexes

With this award from the Inorganic, Bioinorganic and Organo- metallic Chemistry Program, Louis Messerle of the University of Iowa will investigate organometallic compounds of the early transition metals such as zirconium, hafnium, vanadium and tantalum as possible agents for the activation of carbon- hydrogen bonds of alkanes and alkenes. The discovery of a good carbon-hydrogen activation catalyst would allow the use of methane and lower hydrocarbons from natural gas or biomass decomposition as an alternative to petroleum as an energy source and feedstock for much of the synthetic organic chemical industry. The emphasis in this work will be the synthesis and study of the alkane/alkene reactivity of metal- dinuclear compounds, such as doubly bonded dizirconium and triply bonded ditantalum complexes in intermediate oxidation states. Ancillary ligands such as mono- and bi-dentate tertiary phosphines and penta- methylcyclopentadienyl will be used to minimize competitive intramolecular C-H activation. Functionalization studies, such as carbonylation, bromination, monooxidation and photochemical dehydrogenation, on the new alkyl/vinyl(hydrido)dinuclear products will be investigated.